Automatic Gait Generation and Recovery for Mobile Robots

This project explores new locomotion techniques that will enable
robotic systems to recover from a variety of failures. The primary
focus is on a class of robot locomotion termed dynamically coupled
locomotion. The most familiar forms of locomotion, such as human
walking or automobile rolling, employ kinematic coupling. But
locomotory systems are subject to error conditions such as falling or
becoming high-centered. Recovery from such errors sometimes requires
locomotion modes that, while less efficient, are nonetheless essential
to the robustness and overall competence of the robotic system. One
example would be a six-legged robot that has become high-centered on
an obstacle such that its legs no longer reach the ground -- by
aggressively moving its legs it is possible to excite vibration modes
that cause the robot to gradually move off of the obstacle. The
specific goal of this project is to explore the theoretical and
practical capabilities of such locomotion modes, to survey their
potential application in mobile robotic systems, and to demonstrate
their usefulness in real robots. The main theoretical thrust of the
work is to characterize the motion capabilities of dynamically coupled
locomotion, and to synthesize motion patterns for mobile robots to
recover from errors. Experimental and simulation work will serve to
demonstrate and validate the research. Surveys of mobile robot
structures and failure modes will provide context and grounding to
assess the potential usefulness of the work.